Growth, Predation and Mortality in Antarctic Foraminifera: Effects on Community Structure

Foraminifera are single-celled animals which secrete a calcareous shell. From previous studies of McMurdo Sound, it seems clear that foraminifera have a large effect on the biological dynamics in shallow water populations. They are present in great numbers, which also translates into considerable biomass, and are capable of rapid growth on a variety of food sources. They must be an important part of the benthic meiofauna, which is itself a vital part of the benthic marine ecosystem. The objectives of this research are to study the distribution and ecology of important shallow-water Antarctic benthic foraminifera, their predatory activities, including the kinds of prey they consume, and how they modify the structure of the benthic meiofaunal community. Their predation on the larvae of large benthic animals will also be studied, because they may well control the size of adult populations in this way. A series of experimental techniques will be employed, including: manipulation of abundances in the field to monitor effects on the rest of the system; the release and re-capture of marked individuals in the field; and the establishment of laboratory microcosms, which can be continuously observed and manipulated at will. The research will provide a deeper appreciation of the role of benthic foraminifera in the communities in which they are abundant.